National Science Foundation Young Scholars Program at Chowan College

9353062 Faile Chowan College seeks to initiate a three-week, summer residential, Young Scholars program in Interdisciplinary Science for 20 students entering grade 10. The students will be provided an enrichment experience in biology, chemistry, physics, and computer usage through the participation of hands-on laboratory activities, field trips, and lectures and discussions. Students will engage in ethical issues and career awareness activities. The highlight of the project is the participation in a research project under the guidance of faculty members at Chowan College.